Presidential Young Investigator Award: Research in Optical Image Processing and Optical Computing

A laboratory is established to investigate programs in optical image processing and optical computing. In optical image processing, new methods for defect detection in materials such as semiconductor wafers and devices will be examined. In the area of optical computing, the research will seek applications to artificial intelligence and will investigate III-V materials for fast optical switching.